NSF Young Investigator

9357600 Pennington This is a New Young Investigator Award for research on so-called exotic superconductors. These include organic superconductors, heavy fermion superconductors, high temperature superconductors, and the newly discovered fullerene or buckyball superconductors. The primary experimental technique to be used is nuclear magnetic resonance. The experimental program will involve collaborations for the synthesis of new doped superconductors. Theoretical interpretation of nuclear magnetic resonance signals from various species in the superconductors is part of this project. %%% This is a New Young Investigator Award for research on so-called exotic superconductors. These include organic superconductors, heavy fermion superconductors, high temperature superconductors, and the newly discovered fullerene or buckyball superconductors. The primary experimental technique to be used is nuclear magnetic resonance. The experimental program will involve collaborations for the synthesis of new doped superconductors. Theoretical interpretation of nuclear magnetic resonance signals from various species in the superconductors is part of this project. ***